Field Theoretic Models of Nuclear and Subnuclear Systems

A primary focus of this project will be the development and application of the Light Front Tamm-Dancoff approach to field theory. This approach may provide an alternative to the lattice for a rigorous study of nonperturbative field theory, and in particular for the relativistic bound state problem.